Mathematical Sciences: Problems in Low Dimensional Manifolds

Long plans to examine several interrelated questions in the theory of low dimensional manifolds, braid groups and representation varieties. The specific aims concern surgeries on knot manifolds and residual properties of their fundamental groups. This has interactions with mapping class and braid groups, where the techniques to be used include the Thurston theory of mapping class groups. Low dimensional geometric objects (manifolds) are a natural subject for investigation by inhabitants of a 3-dimensional space.